The 8th International Conference on Multiphoton Processes ICOMP8

Support is provided for young scientists to attend the XXIII International Conference on Multiphoton Processing be held in Monterey, California, October 3--8, 1999. The material present in this conference is timely and strongly overlaps the AMO Program.